Conference on Service Operations and Logistics, and Informatics; June 21-23, 2006; Shanghai, China

This grant requests funding in support of a US delegation to attend the international
conference entitled Service Operations and Logistics, and Informatics (SOLI) to be held
June 21-23, 2006 in Shanghai, China. The role of services as a discriminator and its
ability to impact value and profit has increased the focus on research. There is a
significant research and educational gap, and it is important to accelerate the relevant
research in the pivotal areas to develop the knowledge and skills required in a servicesled
economy.

The main goal of this delegation is to deliver a keynote, a visionary panel
session, and 4 tutorials to publicize the NSF SEE research programs and address key
research and educational issues while providing a platform to spread the importance of
research in service oriented operation at this worldwide gathering. Some international
collaboration initiatives are expected. This annual conference is the first one of this kind
to promote services sciences, management, and engineering research around the world.
The majority of delegates thus are from NSF SEE grantees, and researchers and
educators in service engineering. As the conference participants are from different
societies (e.g., IEEE, INFORMS, ACM, ASME) and disciplines (IE, OR, Manufacturing,
Business, Engineering), this support will also help delegates build research
collaborations among not only NSF grantees but also researchers and professionals
from around the world. A significant portion of this grant will provide support to women
and minorities to encourage them to stay active in this new and vibrant field.